Doctoral Dissertation: Localized Patterns of Resource Use - An Examination of Household - Level Wood Use in Tanzania, East Africa

Abstract 0001886

This project will integrate institutional economics (common property theory) and human evolutionary ecology (decision theory) to investigate sustainable wood use in an agropastoralist system in Tanzania. Focusing on issues of resource sustainability and human/environmental impacts, the researcher will identify the behavioral mechanisms that shape differential household wood use, and quantify rates of wood consumption in two ethnic groups of the Rukwa Region. Two hypotheses regarding the factors that shape wood consumption patterns will be tested. Methods include household surveys in three villages, structured interviewing, focus groups, and quantitative measures of wood extraction and tree species growth. This study will contribute to our understanding of the relationship between indigenous values on resource conservation and the actual effects of population resource use on conservation.